Travel Grant "Size Effects on Materials and Structural Behaviors at Micron- and Nano-scales

Abstract

We intend to co-organize an IUTAM symposium on "Size Effects on Material and
Structural Behavior at Micron- and Nano-Scales" with Hong Kong University of
Science and Technology. The symposium will cover the front research in areas of
vital interest to the US. NSF support will enable a larger US participation by
young researchers, women and minorities and provide them opportunities to
establish world-wide contact. They will have the benefit of seeing the larger
context in which their work is a part. The US delegates
for support will be nominated by a panel of three from broad technical
community. Supporting participation of international conferences is a direct mechanism of NSF to promote collaboration of US researchers with their Asian counter parts and the education and development of young US researchers, especially women and minorities.